Galois Representations and Modular Forms

A big theme in number theory in the last 50 years has been the relationship
between automorphic forms, Galois representations and objects from algebraic
geometry. There is an extensive web of extraordinary conjectures (for instance
the Artin conjecture, the Shimura-Taniyama conjecture, Langlands' conjectures,
Serre's conjecture and the Fontaine-Mazur conjecture) linking these three
seemingly very different subjects (which relate to analysis, algebra and
geometry respectively). Progress on these conjectures is currently very
exciting (particularly recent work of Kisin and Khare-Wintenberger). The PI proposes
(with K. Buzzard and T. Gee) to prove the Artin conjecture for odd, two dimensional
representations of the absolute Galois group of the rational numbers. He
also proposes to investigate generalisations of Ihara's lemma to higher rank
unitary groups. As the PI (with L. Clozel, M. Harris and N. Shepherd-Barron) has
recently shown, this would imply the Sato-Tate conjecture for rational elliptic
curves with multiplicative reduction somewhere.

This circle of ideas is the one that led to Andrew Wiles' celebrated proof of
Fermat's last theorem after over 300 years. They fall into the general area of
arithmetic geometry - a subject that blends two of the oldest areas of
mathematics: number theory and geometry. This combination has proved
extraordinarily fruitful. Among its many consequences are new error correcting
codes. Such codes are essential for both modern computers (hard disks) and
compact disks.